Generalized semiparametric odds ratio models

The investigator has two objectives to accomplish in this research
project. The first objective is to develop theory of statistical
inference for a new class of semi-parametric odds ratio models that
include both the generalized linear model and the Cox regression model
as special cases. The second objective is to apply this class of
models to solve a number of theoretical problems that are of
importance in applications. These applications include
(1) addressing issues in parameter identifiability, estimation,
and inference in biased sampling designs in studying the association
of a disease with gene and environment factors, (2) introducing
a new approach for testing goodness of fit of generalized linear
models, and (3) developing a new flexible semi-parametric
procedure for multivariate density estimation and
survival analysis with complex dependence structures.

Flexible and easily interpretable stochastic models are
very useful in extracting information from data with complex
structures. Such data are often collected in studies exploring
the causes of diseases and other socio-economic problems.
The investigator proposes a new class of models for the
statistical analysis of such data. Results from this
research will have broad applications in a variety of scientific fields.
When applied to epidemiological studies, results from this research
will be able to facilitate the design of more powerful statistical
tests for detecting genetic and environmental causes of disease.
When applied to sociological studies, results from this research
will be able to facilitate the understanding of underlying causes
of complex socio-economic problems so that better solutions to the
problems can be found.